Parallel Signal Processing Algorithms and Architectures for Optical Computing over Finite Rings

The purpose of this research planning grant is to (1) extend and apply complex modular (RNS) algebras to signal processing, (2) develop algorithms for high-speed systolic implementation, and (3) design optical signal processor architectures for applications requiring complex arithmetic, extended dynamic range and high speed. A focus is on the Wigner distribution, a time- frequency signal representation, for use in a future optical processor.